Plasmonic Metal Oxide Nanocrystal Heterostructures

In this project, Professor Delia Milliron at the University of Michigan aims to synthesize and understand the optical properties of nanoscale particles containing multiple component materials. The results can enable manufacturing of advanced optical devices, such as lasers and photodetectors for optical communications systems and the concepts could be extended to design catalytic materials for more efficient chemical manufacturing. Researchers participating in this project will receive training in computational simulations, advanced electron microscopy techniques, and nanoscale materials synthesis. Participation in the STEM workforce will be cultivated through undergraduate research experiences and programming to support the success of community college students transferring to four-year STEM degree programs.

The research team will incorporate dopants in metal oxide nanocrystals during synthesis to manipulate the particles’ optical properties and guide the shape of the crystals as they grow. Core/shell metal oxide heterostructures will be developed where internal electronic interfaces will be crafted by radially abrupt differences in dopant contents. Infrared spectral properties that depend on the electron concentration and shapes of core and shell components will be analyzed spectroscopically, mapped by high resolution analytical electron microscopy, and simulated by finite element methods to understand how structure and composition control the absorption and concentration of distinct wavelengths of light. Nanocrystal heterostructures that combine doped metal oxide materials with noble metals will be synthesized, tuning the geometry and composition of the components to create resonant, hybridized optical modes. Such nanoparticles could harness the strong resonance of noble metals and the responsive properties of metal oxides in a single nanostructure, potentially opening the door to dynamic nonlinear optical applications.